Nonlinear Modeling and Characterization of ZnO-based Sensors

The objective of this study is to develop the analytical models for the
dynamics of ZnO nanowires, nanobelts and nanosheets. We will study
both the nonlinear single mode and the dual mode responses of these
nanostructures subject to the electric field. These investigations will establish the
link between the single crystal structure of ZnO and the nonlinear dynamics
behavior of the nanostructures in nanowires, nanosheets and nanobelts. The study
will lead to an exploration at a later stage of a series of different nanostructure
oxides in different molecular structures for their behaviors in higher complexities,
such as the coupled modal responses and chaotic synchronization.

Intellectual merit:
The outcome of this research will push forward the sensor development in biochemistry and bioengineering, as well as for high precision instrumentation and field effect
transistors, among others. Oxide-based nanostructures exist mostly in single crystal molecular structures. By a controlled growth mechanism, single-crystal semiconducting oxides in various forms of morphology have been synthesized, i.e. in the forms of
nanowires, nanobelts, nanosheets and nanodiskettes as well as of nanorods. The
diverse properties of the oxides show promise as future sensors in the areas of
high precision scanning probes, gas sensors, and drug delivery carriers, as well as
piezoelectric sensors and actuators.

We will focus on the nonlinear dynamics of the single crystal nanowire,
nanobelt and nanosheet subject to an electric field. A series of Nonlinear
Dynamics models will establish the quantified relations between the
nanostructures and their dynamic behaviors under the applied field. These
analytical models for ZnO-based nanostructures will be used for sensor
development and characterization.